REG: High-Speed Data Acquisition and Control Systems for Remote Sensing Applications

The PI has been conducting extensive research supported by NSF in three major areas: millimeter- wave remote sensing of geophysical media; bistatic scattering from rough surfaces; and modeling of forest canopy at the microwave region. All three areas require studying interaction of waves with random or inhomogeneous natural media. Major objectives are the development of basic information on microwave and millimeter-wave remote sensing. Thus far efforts have been directed to extensive experimental and theoretical investigations. Over the past 10 years, the PI has developed a mobile truck mounted radars at L, C, X, and millimeter-wave frequency bands. Experimental studies, however, have been limited by the speed and reliability of the data acquisition system and controllers. The fast data acquisition system and computers provided in this NSF Engineering Research Equipment Grant should advance the ability to conduct experiments in situ and to develop theoretical models of wave interactions with geophysical media.